A Problem-Based Restructuring of Calculus

Students are working collaboratively on thought-provoking problems in small teams under the guidance of advanced undergraduates. The collection of problems is being expanded and will include materials for use with graphing calculators and guide books for the restructured course.